RIA: Analytical Modeling of an Ultrasonic Traveling Wave Motor for Design Optimiztion

9409937 Stutts Analytical modeling of the ultrasonic traveling wave motor will be performed. The contact dynamics between the stator and rotor will be modeled by using classical plate theory, and Hertzian and non-Hertzian contact mechanics. Modeling of the stator and piezoelectric elements will be done utilizing a modified composite plate theory. The model will be used to develop simpler control schemes for these motors and will be validated by tests at an industrial participant's laboratories. ***